Tennessee International Symposium on Radiative Corrections; June 27--July 1, 1994; Gatlinburg, Tennessee

A Symposium is to be held at the University of Tennessee, Knoxville, on the subject of Radiative Corrections to the Standard Model. Attendance will be drawn from the worldwide community of expert experimental and theoretical practitioners as well as graduate students and postdoctoral associates. The Symposium will be 4-1/2 days in duration, with a format of half- hour long invited talks. Topics to be covered include those of near-term interest, physics at the Z for example, and future concerns to be addressed at LHC (formerly at SSC). Attendance is planned for about 150 participants, by invitation only.